SHF: Small: RUI: Characterizing, Detecting, and Fixing Performance Bugs That Have Non-Intrusive Fixes

Software performance is critical for the success of a software
project. Performance bugs are programming errors that slow down
execution. Many recent techniques have been proposed to detect
various performance bugs. However, there are still many performance
bugs that cannot be detected by existing techniques. Furthermore, a
crucial and practical aspect of performance bugs has not received the
attention it deserves: How likely are developers to fix a detected
performance bug?

To significantly improve software performance, this project will
develop a set of novel techniques that focus on a class of performance
bugs that are very likely to be fixed by developers, specifically on
performance bugs that have non-intrusive fixes. Performance bugs that
have non-intrusive fixes are very likely to be fixed by developers
because the benefits of the fix (i.e., code speedup) clearly outweigh
the drawbacks of the fix (e.g., introducing new correctness bugs,
breaking good software engineering practices, development time and
effort, etc). This project will address three fundamental challenges:
(1) What performance bugs have non-intrusive fixes and what are their
defining characteristics? (2) How to automatically detect performance
bugs and how to establish that their fixes will be non-intrusive? (3)
How to automatically fix some of the detected performance bugs? This
work will broaden our understanding of an understudied yet important
aspect of software performance and will provide automated solutions to
improve software performance.